A Simultaneous Magnetization and Magnetoresistance Study of the Roles of Anisotropy and Fluxoid Motion in High Temperature Superconductors

Simultaneous measurements of the d.c. magnetization M(H,T,O) and resistance R(H,T,O) will be performed on monocrystalline samples of a series of superconductors of increasing anisotropy, in order to 1) separate the dissipative contributions from the truly superconducting properties in a dtermination of the upper critical field, and 2) investigate the role of quasi-two dimensionality (anisotropy) with regard to critical temperatures, fields and currents. The systems studied shall be the Bi-and Tl-based oxide superconductors, and the high Tc organic superconductor (BEDT- TTF)2Cu(NCS)2, a closely related and important system which possesses similar flux-flow and anisotropic properties as the oxides.